Particle Transport and Nonlinear Dynamics in Quasi-One- Dimensional Structures

This grant addresses various issues related to non- linear charge transport in one dimensional artificial structures in a temperature range from liquid helium to higher temperature. We will focus on basic and high field transport properties in highly quantized systems with special emphasis on electron-phonon interaction, intersubband and real space transfer effects. The research employs an integrated theoretical and experimental approach which involves tools and technologies developed by our group at the University of Illinois.